Sunspot Maximum High Latitude Plasma Structure (HLPS) Campaigns

The high latitude plasma structure campaigns (HLPS) are aimed at the understanding of the general morphology of ionization structures that are observed in the high latitude polar cap thermosphere. Many of the different phenomena that are studied are solar cycle dependent with some of the key processes apparent only at solar maximum. Since the next few years are at the peak of one of the largest solar activity cycles a unique opportunity exists to study these phenomena with extensive coordinated observations at many different polar locations with many different diagnostic instruments. This proposed project is for conducting observations and performing analysis of incoherent scatter radar, all sky imaging photometer, total electron content, scintillation and satellite in-situ measurements. In addition the PI has a major role in the coordination, organization and direction of the overall multi- station instrument campaign activity.*** //